Mathematical Sciences: Mechanochemical Models for BiologicalPattern Formation

Development of pattern and form is a central issue in embryology. The interdisciplinary research proposed is to develop and analyze mathematical models for specific epidermal patterns, namely primate dermatoglyphics and alligator stripe patterns. The models will be constructed around known biological facts. The differential equation systems which constitute the models will be investigated analytically and numerically with a view to generating the observed spatial patterns. Stability and robustness of the model mechanisms will also be investigated. The work emphasizes the necessity for integrating theoretical studies and experimental and observational facts. The mathematical techniques used in the investigation will be bifurcation theory and numerical simulation of the nonlinear integrodifferential equation system.